(ESH) Holocene Climatic Variations in the Midcontinent of North America: Analyses of Annually Laminated Sediments from Minnesota Lakes

Annually laminated sediments (varves) from lakes provide a unique vehicle to acquire continental paleoclimatic data with secure chronologies. This proposal seeks to analyze varved sediments from four Minnesota lakes for a suite of geochemical, sedimentological, and biological proxies to assess Holocene climatic variability in the midcontinent of North America. These proxies include varve thickness, organic and inorganic carbon, detrital minerals, mineralogical composition, grain size, oxygen and carbon isotopes of carbonates and ostracode shells, trace-element composition of ostracode shells, and pollen. The research objectives are: (1) Calibrate various climatic proxies in varved sediments with instrumental weather data for the last 100 years to evaluate how each proxy is related to climatic factors, (2) Assess Holocene climatic variations, particularly cyclic and abrupt changes, by interpreting proxy records from our study sites on the basis of calibration results, (3) Integrate new varved-sediment data with findings from other high-resolution paleoclimatic studies in adjacent areas to provide a regional synthesis of Holocene climatic variations, (4) Compare patterns of climatic fluctuations in the midcontinent of North America with those in Greenland, the North Atlantic, and other parts of the globe to evaluate mechanisms of Holocene climatic variability.